The Three-Dimensional Structure of the Milky Way

The goal of Dr. Spergel's project is to synthesize the growing body of observational data that suggests that our Galaxy, the Milky Way, has significant non-axisymmetric structure. Improvements in infrared technology have enabled astronomers to observe the galactic center at wavelengths not obscured by dust. These observations suggest that our Galaxy is barred. Radio wavelength surveys of gas motions in our Galaxy reveal significant non- circular motions that are likely due to this bar. Dr. Spergel plans to develop analytical and numerical techniques to construct a three-dimensional model of the Milky Way that is consistent with the observations. Improvements in our understanding of orbital dynamics in triaxial systems as well as improvements in numerical techniques and computer hardware will facilitate this study. Dr. Spergel also plans to study the dynamics of corrugation waves and spiral density waves excited by the bar and the galactic spheroid and to explore how these waves alter gas motions in the Galaxy. Ultimately the goal of this research is to better understand the morphology and dynamics of the Milky Way and to provide insight into its origin and evolution.